Workshop on Self-Determination in Developing and Evolving Systems in Boston, Massachusetts, January 1994.

9315320 Kuperstein This award partially supports a workshop on self-determination in developing and evolving systems. The workshop will take place in Boston, MA, January 6-9, 1994, and is being co-supported by AFOSR and ONR. Living systems at different scales appear to share similar principles of adaptation and growth towards self- determination. Self-determination in these systems is their ability to create new and increasingly more complex interactions with their environment and other systems. There are two goals of this workshop: First, consolidate principles and mechanisms of self-determination that cut across scales which range from biological to neural to psychological to social systems; second, discuss the applications of these principles to understanding natural systems and creating innovative computing systems. ***